CMG Research: Experiments Aimed at Improving Global Seismic Tomography

0222327
Garnero

The purpose of this proposed research is to employ two methods from
the field of applied mathematics to seismic tomography; each is
focused on the goal of improved imaging of spatial data. This work
is a collaborative effort between geophysicist Ed Garnero and two
applied mathematicians, Anne Gelb and Rosie Renaut. This effort will
train two graduate students in a cross-disciplinary approach between
the fields of applied math and seismology. While 3D images of Earth's
mantle have come in clearer focus over the last 25 years, many
challenges remain, most notably because of incomplete data coverage.
Inversions of seismic data require smoothing and damping that
effectively blurs resulting images. The investigators are motivated
to better resolve the gradients and shapes of seismic velocity
heterogeneity since they relate to temperature and/or compositional
changes in Earth's interior. The project will employ the following
two methods. (1) Data reprocessing and inversion methods:
deconvolution methods will be used to intelligently preprocess
differential travel time computations. Inversion may also be improved
by regularization through a total variation type penalty term. (2)
Image reconstruction methods: apply the Gegenbauer reconstruction
method for high resolution post-processing reconstruction, which has
proven effective for removing Gibbs oscillations without compromising
the finer image features even near jump discontinuities in other
applications, such as magnetic resonance imaging. The tasks can be
summarized as follows. (1) Pre-inversion processing: travel time
series cleanup evaluated for blind and knowledge-based deconvolution,
approximated from structural models of the Earth's interior. (2)
Inversion experiments: determine effectiveness of a total variation
regularization model, particularly in conjunction with the impact on
post-inversion processing. (3) Post-inversion processing: sharpen
images through removal of artifacts with the Gegenbauer
reconstruction method. (4) Assess solution images with data: data
from geographical regions with best data coverage will be analyzed
and modeled to test solution structures.